Engineering Research Center for the Carnegie Mellon Data Storage Systems Center

This award establishes an Engineering Research Center for Data Storage Systems, at Carnegie-Mellon University (CMU), with Professor Mark Kryder as Director. The long term goal of the proposed ERC is to accelerate the rate of progress in data storage device density and performance by establishing a long- term research and education program with thrusts in magnetics, nmagneto-optics, and allied technologies such as signal processing and coding, with a target of increasing storage density by several orders of magnitude beyond today's systems. The ERC will supersede the existing industry-funded Magnetics Technology Center (MTC) and will expand its scope to include longer-term research with a systems perspective. The research objectives focus on advances in magnetic and magneto-optic media; inductive, magneto-resistive, and optical heads; media-head interface reliability; positioners and servo control systems; signal processing and coding; and modeling of the recording system. The extreme complexity and cross-disciplinary nature of disk-drive technology requires a well-integrated approach to the research. The staff at CMU is a highly respected group of researchers with an outstanding record for innovative, high quality research, across the spectrum of proposed research areas. This combination of strengths in individual research areas integrated by a strong systems focus is unique to the CMU Center. The proposed education program will double the number of graduate students specializing in data storage research at CMU and will create opportunities for a considerable number of undergraduates to participate in the research as well. All these students will receive a valuable exposure to industrial problems and perspectives. Graduate and undergraduate curricula will be improved via new and upgraded courses. A proposed summer institute for secondary school teachers will expose these teachers to the excitement of engineering and encourage them to help attract highly;y qualified students into engineering.